Coordination of Distributed Information and Decisions

This is a collaborative research effort on fundamental problems involved in the collection, communication and processing of distributed information and the coordination of distributed decision making. The issues studied apply to social organizations such as economies, government agencies, and firms, as well as to machine systems such as large scale control systems, distributed communications networks, and asynchronous parallel processing systems. Engineers and economists both analyze these issues, although with different goals. However, insights developed in each field are likely to be productive in the other. This is a program of research in areas of information economics, parallel processing and machine learning, team theory, control and estimation with distributed information, and the emergence of equilibrium behavior and allocations in large systems of interacting agents. To increase the impact of this work, the researchers run an interdisciplinary workshop series on coordination, information, and decisions.